Stereospecific Transformations of Anomeric Nucleophiles

Dr. Maciej A. Walczak of the University of Colorado Boulder will develop new ways to build sugar-based molecules that could be used in medicine, biological research, and future manufacturing technologies. Sugars are important targets for this work because they help living cells recognize, communicate with, and respond to one another. They could also serve as starting points for new treatments for bacterial infections, viral diseases, and metabolic disorders. However, many sugar-containing molecules remain difficult to make because their atoms must be connected in very specific three-dimensional arrangements. This project will create more reliable and predictable methods for making these structures. The work would support innovation in advanced manufacturing by using novel chemical technologies to make complex products with higher precision, fewer resources, and new capabilities. These methods could help researchers prepare useful molecules faster, reduce chemical waste, and improve access to materials needed for healthcare- and agriculture-related discovery. The project will also have broader impacts through student training, course-based research activities, public science outreach, and partnerships with industry. Undergraduate and graduate students will gain experience in modern chemical synthesis, data analysis, electrochemistry, and scientific communication, helping prepare a skilled STEM workforce.

The proposed research will establish a unified platform for the stereospecific construction of C- and O-glycosidic bonds from configurationally stable anomeric nucleophiles. These studies will develop electrochemical, oxidative O-glycosylation by defining half-wave potentials across different anomeric donor classes and using potential- or current-controlled activation to enable programmed glycosylation sequences. Donor-dependent redox windows will allow distinct glycosyl donors to be activated selectively under mild conditions. Mechanistic studies will connect donor class, protecting-group pattern, temperature, rate, and stereoselectivity to generate predictive models for reaction design. The resulting framework will use stereo-retentive umpolung reactivity at C1 to replace less predictable displacement-based approaches and would provide general, automation-compatible methods for assembling structurally defined carbohydrates, glycomimetics, and glycoconjugates.